A Project-Based Modular Linear Algebra Curriculum

9354552 Bagchi The purpose of this project is to develop a new project-based and applications oriented linear algebra sequence of two courses for science, engineering, and management students. The first of these courses serves as an alternative to calculus for freshment. Drawing from the experience of successful project-based curricula at WPI, these courses are being developed around project work, hands-on experience with real world applications, extensive computer usage, and written laboratory reports. WPI mathematics majors are playing an important role in the development of this curricula as part of their junior and senior projects. The modular course structure allows flexibility in customizing these courses to student and instructor needs, thereby enhancing portability to other institutions. ***y